Interactive Product Development in a Virtual Environment Utilizing Haptics

This grant provides funding for the development of a virtual reality-based tool to be used in the design of products that are subject to critical stress and/or fluid flow constraints. The primary goal of this research is to develop a methodology that couples computer-aided-design (CAD) models with analysis models and allows shape changes to be performed in real time in a three-dimensional virtual environment. This tool will couple the CAD geometry model to the analysis model of a product and provide a three-dimensional environment to allow for investigation of the effect that shape changes have on the stress or fluid flow distribution within the product. A critical component to this research is the development of fast approximation or calculation methods for stress analysis and fluid flow analysis that will allow for immediate display in the virtual environment. A method of transferring the final shape of the product back to the CAD environment will be developed. Haptics, in the form of force feedback, will be an integral part of the virtual environment and will provide additional information to the participants concerning the feasibility of the design and the impact that the shape changes have on assembly with other parts in the product design.

If successful, the results of this research will lead to improvements in concurrent design methods and result in reduced product development time. Participants from diverse backgrounds such as engineering, marketing, and manufacturing will benefit from the use of this methodology in the virtual environment because the environment more closely mimics the real world than does the traditional monitor, mouse and keyboard computer interface. Providing this design/analysis environment will encourage the quick investigation of many possible shape changes and how they affect the final product assembly and operation.